NGS: Software Tools for New-Generation, Display-Centric Applications

The goal of this research project is to develop new software tools and applications for scalable display systems. These primary focus is on methods that coordinate multiple displays, multiple users, and multiple applications to enable true display-centric computing. For coordinating multiple displays, the project will develop dynamic feedback to build adaptive layered multi-resolution display systems and to study how to achieve integrated, continuous calibration capable of delivering high-quality information display. For coordinating multiple users, software tools that manage information display intelligently and securely for seamless exchange of visual information will be developed. For coordinating multiple applications, the project will study how to design an adaptive infrastructure that enables multiple applications to share a scalable display efficiently.